Electrospray Ionization Mass Spectrometry for Proteins and Peptides

The analytical potential of mass spectrometry for analysis of proteins, peptides and glycoproteins will be extended by development of improved electrospray ionization sources. The ion focusing methods, crucial for high sensitivity in the electrospray ionization atmospheric pressure source, will be refined and the critical operating parameters studied. Fundamental aspects of electrospray ionization of various biomolecules will be investigated with emphasis on the multiple charging proteins, peptides and glycoproteins. Recognizing the important practical effect of extending the molecular weight range accessible by quadrupole mass spectrometry, the multiple charging phenomena will be investigated to gain an understanding of its nature, and ultimately, to control and optimize the charge distribution. Fundamental aspects of collisionally induced dissociation of the uniquely fragile multiply charged ions produced in electrospray ionization will be explored for tandem MS/MS experiments, particularly for application to high sensitivity primary sequence determination of peptides. Methods for "nano-scale" sample handling, isolation, enzymatic digestion, injection and analysis will be evaluated for a variety of reference proteins, peptides and glycoproteins and in applied studies.